Mathematical Sciences: Optical Diffraction and Inverse Scattering from Features on Silicon Wafers

The purpose of this research is to develop a capability for: (1) calculating two-dimensional optical diffractions for the edges of dielectric or imperfectly conducting features on layered, silicon-based substrates; and (2) utilizing diffracted two-dimensional fields in an inversion algorithm for shape reconstruction of linear (line-like) features on silicon wafers and chips for integrated circuits. The research is fundamentally mathematical in nature and is driven by critical problems in the integrated circuit industry, although it is important to a wider class of applications. The research objective for Phase I is: (1) to implement a new theory of vector diffraction utilizing self-similarity and vector boundary value problems in complex variable theory; and (2) to begin preliminary study of the inverse optical scattering problem for metrology of edged features on silicon substrates, considering the pros and cons of time domain and frequency domain data, and feasibility of data acquisition. If successful, these diffraction solutions and inversion methods will prove technically beneficial for a variety of applied problems. However, their greatest potential may eventually be reached in the integrated circuit industry if they can contribute to increased yield by means of automated metrology. It is expected that positive results from this line of research could eventually contribute to the theory of a practical, automated inspection instrument for IC metrology. This would have a significant impact on productivity of the integrated circuit industry. The vector diffraction solutions sought here are useful in their own right for sonar, radar, and optics applications.